SGER: Multienzymatic Biocatalysis for the Treatment of Industrial Wastewater Heavily Contaminated with Chlorinated Solvents

0117042 Cutright The objective of this research is to provide the fundamentals needed for the construction of multi-enzyme systems that will affect degradation of organic waste streams containing mixed pollutants such as trichloroethylene, toluene, dichloroethylene and chlorophenols. The specific objectives of this research include: (1) development of the microbial consortium for isolating the multi-enzymatic catalytic system for the treatment of polluted wastewater, and (2) demonstrating the feasibility of immobilized multi-enzyme systems for degrading chlorinated solvents. This research will also contribute to understanding the interactions among enzymes and cofactors involved in the biodegradation pathways. ***